Restructuring Undergraduate Experiences in Analytical Chemistry via Capillary Electrophoresis and High PerformanceLiquid Chromatography

9452530 Franz Lycoming College is acquiring capillary electrophoresis (CE) and high performance liquid chromatography (HPLC) instrumentation for use in upper level chemistry laboratories. The project has three goals: 1 Expand chemistry and biology majors opportunities in separation science; 2 Increase the use of discovery-based experiments in the undergraduate curriculum; 3 Provide state- of-the-art instrumentation for undergraduate research.